A Focus on Mathematics for Education Faculty

The Education Development Center (EDC) proposes a two-part effort to strengthen the mathematics content in courses designed for graduate students in mathematics education. The first part is a one-week workshop for faculty members in education who are responsible for developing content courses for graduate students in mathematics education. These faculty members will experience aspects of being a "student" in such a course and will gain tools and materials to implement similar courses at their home universities. During the subsequent academic year, on-line materials and the opportunity for interaction will support them as they develop and teach courses.